Information Assurance Educational Support Program

This program provides an opportunity for faculty from other universities to receive education in information assurance with the focus on being able to teach the core concepts to their students. The target audience is faculty members from 4 year colleges and universities who are teaching computer science, information systems, or related fields and have a working knowledge of computers. They participate in a summer workshop to help them integrate the material into their courses or to help them develop new courses. Participating faculty take two courses offered via distance education. They also receive support material to help them integrate the subject material into their existing courses. The delivery consists of video taped lectures and on-line support through chat-rooms, emails, and phone. Several of the courses offer a hands-on learning experience where the faculty perform experiments and use software systems remotely through the Internet.